Workshop on The Politics of Economic Reform in the Former Communist-Bloc States, Los Angeles, Fall, 1991

The deepening economic crises in Eastern Europe and the Soviet Union and the economic stagnation in China, have political causes and consequences that contemporary political science is ill equipped to analyze. Few of the most powerful theories developed for western regimes apply in the former eastern bloc nations. Area studies experts are theoretically uninformed and know too little about either political economy or systematic research methods. This research training workshop attempts to remedy this situation by bringing together some of the Soviet area specialists, democratic theorists, and research methodologists for a series of intensive sessions. The senior participants will benefit from the interdisciplinary exchange of ideas and participating graduate students will have an unusual opportunity to work with and synthesize the ideas of the leaders in the field.